Planning Grant for SMET Opportunities at College of Menominee Nation

A number of opportunities exist for COLLEGE OF MENOMINEE NATION that require further
development of SMET programs currently offered at the College. To forward its 8,000
years of stewardship and expertise in sustainable forest management, the Menominee
Nation is committed to ensuring that future generations are prepared as stewards
well-schooled in sound sciences and best practices in Menominee autochthony. Our
challenge is to assure that quality in SMET education is commensurate with that
stewardship.

COLLEGE OF MENOMINEE NATION will enhance student opportunities in science, math,
engineering and technology through a planning process that will provide assessment
of the SMET infrastructure and the development of an institutional plan to enhance its
SMET program. The process will also assess the needs of the communities on the
Menominee Reservation, as well as the Oneida, Mohican and Potowatomi Nations and
neighboring non-Indian communities to determine the constellation of SMET programs
that will promote sustainable development in the communities of northeastern
Wisconsin. In addition, assessment of the current math offerings as a necessary
interface is a priority. We envision such an analysis as the key to our delivery
of student research opportunities in eco-toxicology, environmental science and
environmental health.